Molecular Beam Epitaxy Studies of Magnetic Surfaces, Inter- faces, Superlattices and High Temperature Superconductors

They plan a number of projects which aim at increasing their understanding of surface and interfacial magnetism and, at the same time, laying a foundation for the development of new magnetic materials which might prove important in data storage applications. They intend to continue their work on (110)iron/(111)silver heterostructures and superlattices, taking full advantage of their RHEED facilities. In all cases it is necessary to do careful studies to determine whether clean, epitaxial interfaces, without significant alloying can be produced. They have shown that they can produce excellent silver substrates in their MBE apparatus by deposition of silver on polished silver single crystals. They can now do Conversion- Electron Mossbauer spectroscopy on such heterostructure samples. They also propose to use their MBE system to grow superconducting copper perovskites on appropriate single crystal substrates. They expect to use a multiple cell effusion system which also permits oxygen effusion. They hope to be able to produce films which may depart from the normal 1-2-3 phase and which show significantly enhanced Tc over the bulk samples which they now grow. Attention will be paid to the development of thin film ceramic technology important to the application of these materials as sensors and superconducting computer elements. Doping of samples with 57iron to permit Mossbauer spectroscopic examination of the copper sites is also planned.